Group Travel to XX11 ICHMT Conference to be held in Dubrovnik, Yugoslavia, August 27-31, 1990

This award is for travel and some office expenses related to the XXII ICHMT Conference on Manufacturing and Materials Processing, to be held in Dubrovnik, Yugoslavia in August, 1990. Senior panelists will be supported with the funds.